Student and Organizational Learning: Preparing the 21st Century Technician

Using theoretical frameworks on student learning and assessment, program elements, models for dissemination, and fostering transformational leadership, the investigators are surveying six selected National Science Foundation Advanced Technological Education funded centers and projects in order to describe current practices in the four targeted areas. Through surveys, interviews, access to data sets, and document review, the research team is creating five documents. The planned outcomes of this research project are three research documents on the topics of program elements, sharing innovations, and developing transformational leaders and two program guidebooks. The research documents and the guidebooks are targeted to inform both researchers and community college faculty and leaders.